Midwest Several Complex Variables Conference at Syracuse University

A Midwest Several Complex Variables Conference will be held on October 10-12,
2003, at Syracuse University. This will continue the long time tradition of Midwest
Several Complex Variables Conferences which became one of the highest quality and
most successful conference series in Complex Analysis. There have been many new
interesting developments in different fields of this area in recent years, especially in
Complex Geometry, Complex Dynamics, Partial Differential Equations and Pluripotential
Theory. The conference will provide a forum to exchange and to stimulate
new ideas from these disciplines, and to formulate new challenging problems that will
have important scientific impact. It is expected that this will result in increased understanding
of the deeper mathematical issues in Complex Analysis. The conference
speakers include: Thomas Bloom (University of Toronto), Araceli Bonifant (SUNY at
Stony Brook), Jeffrey Diller (University of Notre Dame), Peter Ebenfelt (University of
California, San Diego), Vincent Guedj (University Paul Sabatier, Toulouse), Sergei
Ivashkovich (Universit des Sciences et Technologies de Lille), Imre Patyi (University
of California, San Diego), Jean-Pierre Rosay (University of Wisconsin, Madison), Rasul
Shafikov (SUNY at Stony Brook), Mei-Chi Shaw (University of Notre Dame), B.
Alan Taylor (University of Michigan), Sophia Vassiliadou (Georgetown University),
Brendan Weickert (Washington and Lee University), Jan Wiegerinck (University of
Amsterdam).
Complex Analysis is an interdisciplinary field involving complex numbers to solve
problems in mathematics. The conference will explore the interplay of research which
has taken place in a number of broad areas: Complex Geometry, Complex Dynamics,
Partial Differential Equations and Pluripotential Theory. Many of the developments
in these disciplines found new applications outside their traditional area. We believe
that hosting such a high level conference will greatly benefit the US mathematicians.
It is especially helpful in educating our graduate students and recent Ph.D.'s, providing
them with the opportunity to be in touch with the leading experts working on
the frontier of the field. We will give special attention to attracting young scientists
among the participants and speakers. A significant part of the conference budget is
allocated especially for this. An effort will be made to increase the number of women
who will attend the conference. To disseminate the information about the conference
the organizers created a web site (address: http://web.syr.edu/ dcoman/SCV/),
where abstracts of talks and suggested problems will be found.